Heat Transfer in Advanced Spray Processing of Metal Matrix Composites

ABSTRACT---CTS-9224850 Lavernia Metal matrix composites (MMCs) have the potential combining metallic properties of ductility, toughness, and environmental resistance with reinforcement properties of high strength and high modules. The attractive physical and mechanical properties that can be obtained with metal matrix composites have been documented by numerous investigators. As will be demonstrated in this proposal, despite encouraging preliminary results, our understandings of the thermal mechanisms that govern the interactions between the ceramic and metallic phases remain very limited. In particular, the effects associated with the energetic co-injection of a distribution of ceramic particulates into a partially solidified metallic spray, and its ensuing effects on the heat transfer during atomization and subsequently during deposition are not well understood. The objective of the present proposal is to outline a research program to systematically investigate the thermal effects of ceramic particulates on the evolution of microstructure during spray co-deposition of metal matrix composites.